Investigation of the Role of the Conserved Nucleolar Protein, B-36, in rRNA Processing and its Potential Homologyto Major Structural Proteins Involved in mRNA Processing

This award represents a transfer from Dr. Christensen's former institution (Texas A & M University) to his present institution (University of Missouri at Kansas City).